Conference on: Calcium and Cell Function July 6-10, 1992, Vermont Academy Saxtons River, Vermont

This proposal supports a FASEB Summer Research Conference on Calcium and Cell Function to be held July 6-10, 1992 at the Vermont Academy in Saxtons River, VT. This meeting is held once every two or three years, and the participants cover a broad range of biology but share a common interest in calcium as a physiological regulator of many cellular events and processes. %%% This FASEB conference provides a common platform for scientists working in an unusually-wide variety of fields to share their results and common interests in calcium. The informal setting and small meeting size will foster scientific interactions between individuals who, in all likelihood, would not otherwise meet. These interactions are important in developing interdisciplinary research collaborations.